Classroom equipped for Innovative teaching of the Dynamics Sequence

This project dramatically changes the method of instruction of the engineering mechanics course, Dynamics, which is traditionally taught in a lecture discussion environment, to sophomore students from several engineering disciplines. The project's innovative learning climate will consist of a classroom filled with NeXT computer workstations, ample desktop space, white boards, screen projection system, and symbolic algebra packages.This highly advanced classroom makes possible revolutionary teaching of dynamics, and in doing so will: (1) allow a focus on problem solving rather than mathematical gymnastics (2) allow the instructor to construct and illustrate, online and in class, the problem analysis and set- up using symbolic algebra; (3) permit the instructor and student to check answers to complicated problems using symbolic algebra; (4) experience "what if" conditions to problem analysis and instantaneously observe (graphically) the consequences of change; (5) continue to reinforce the workstation learning approach used in the integrated freshman curriculum and math department at Rose Hulman; (6) provide an opportunity to present material and problem solving heretofore omitted because less class time will be spent solving equations; (7) empower instructors with an opportunity to expand the complexity, scope, and fidelity of dynamics problems 8) reinforce the question of "Does the answer make sense?" afforded by faster solutions, graphical verification, and online animation.